Introducing a Novel Cache Design to Vector Computers

Yang This is a supplement to provide a Research Opportunity Award (ROA) for a faculty member at an urban undergraduate minority institution. The visiting faculty member is studying the caching behavior of an interval Newton method for solving large systems of nonlinear equations. Both analytical and experimental techniques are being used to determine the caching behavior of several algorithms for solving systems of equations. Caching behavior is being studied on both existing vector computers and on the new cache organization that has been designed by the principal investigator.